Acquisition of a High Field Pulse Magnetizer for Permanent Magnets

Support is provided for research equipment for analyzing new magnet materials that are based on the rare earth/iron alloy system. The specific equipment is a pulse magnetizer used to determine properties of permanent magnets. Such equipment is regularly used and required for characterizing magnets.